Science Adventure in Research and Career Exploration

This project, entitled "Science Adventure in Research and Career Exploration", is initiated to provide an enrichment program in the life sciences for 30 students entering the eighth grade. This Young Scholars Program is a three-week, residential program designed to provide students with content knowledge in the life sciences and a research experience with outstanding scientists in various scientific disciplines related to the fields of life science.